CISE Research Instrumentation: A Computer Laboratory for MultiDimensional Signal and Image Processing

9422106 Leahy This award is to purchase equipment dedicated to research in computer and information science and engineering. Specifically, the equipment will be used for research in multi-dimensional signal and image processing, including in particular: 1) fusion of multimodal neuroimaging data; 2) adaptive quantization of image and video; 3) automatic target recognition via deformable template matching; 4) design of high resolution diffractive optics for photonic interconnections and computing; and 5) advanced adaptive multidimensional and array signal processing. Common to all of these projects is a need for access to fast numerical computation and high resolution visualization and display capabilities. The goal of this project is to set up a state of the art facility for processing, visualization and display of multidimensional data. Towards this end, a computer for high performance numerical computation, and a RAM-based workstation for display of high resolution video image sequences with a high performance graphics capability will be purchased. ***